STTR Phase I: Development of an Actively-Controlled Prosthetic Foot

This Small Technology Transfer Research (STTR) Phase I project aims to develop an actively controlled prosthetic foot that makes walking easier and more comfortable for the lower limb amputees. Commercial prostheses use passive mechanisms to provide articulation, cushioning against heel impact, and elastic energy return; yet the energetic cost of amputee walking is high.

Currently the most sophisticated prostheses are intelligent knees, which improve gait by actively controlling braking of the knee. Based on recent laboratory result and an earlier prototype device, the proposed project will used controlled energy storage and release, thus significantly improve the efficiency of a prosthetic foot.